Presidential Young Investigator Award: Experimental Study of Heavy Quark Decays

The investigator proposes a mix of activities aimed at a study of decays of heavy b and c quarks. The activities include participation in the design of a detector to be used at an asymmetric B factory at SLAC, and in the running and analysis of data from experiment E791 at Fermilab. In the former activity, the PI already has established her program. She has given a course of seminars at SLAC on the subject of CP violation - the matter/antimatter asymmetry of the universe. She has also co-led the study of the use of He based drift chamber gases in a detector to be used at the planned facility. She also plans a long term participation in E791 at Fermilab to study semi-leptonic decays of D mesons, and also mixing between the matter/antimatter D0 and anti-D0 partners.